Physical Phenomena in Low-Dimensional Systems

Theoretical studies will be conducted on the fundamental physics of various low-dimensional systems. Systems to be considered include heterogeneous magneto-conducting and magneto-superconducting systems, and ensembles of nano-scale magnetic clusters. These systems are presently being produced in forefront physics and chemistry laboratories, but their physical properties have not been studied extensively. One can expect new topological defects, a rich spectrum of ordered and disordered states, and new transport and dynamical phenomena. Also, a host of applications are suggested, including very dense and reliable memory, sensors, magnetic transistors and other magneto-transport devices, as well as quantum generators. Collaborations have been established with experimental and theoretical groups in the US and Europe.
%%%
Theoretical studies will be conducted on the fundamental physics of various low-dimensional systems. Systems to be considered include heterogeneous magneto-conducting and magneto-superconducting systems, and ensembles of nano-scale magnetic clusters. These systems are presently being produced in forefront physics and chemistry laboratories, but their physical properties have not been studied extensively. One can expect new topological defects, a rich spectrum of ordered and disordered states, and new transport and dynamical phenomena. Also, a host of applications are suggested, including very dense and reliable memory, sensors, magnetic transistors and other magneto-transport devices, as well as quantum generators. Collaborations have been established with experimental and theoretical groups in the US and Europe.
***